Acquisition of Scanning Electron Microscope and Image Acquisition Capability

Improvements in microscopic data collection and analysis are needed for research activities of the faculty in the biological sciences. To replace obsolete facilities, improve instrumental resolution, and increase operating efficiency, the PIs propose to purchase a new scanning electron microscope and to equip the existing transmission electron microscope with an image acquisition system. The latter will allow the PIs to link the transmission electron microscope/image acquisition system to the University's computer network, including the Cray YMP supercomputer in Columbus, to facilitate work on the three- dimensional organization of large structures. The proposed acquisition will enhance the research potential of several investigators and allow others to work on problems that cannot currently be addressed at all. These purchases will complete the process of upgrading the University's central microscopy resources and will enhance all the research programs that employ microscopy as an essential tool.